Contructive Function Theory on Subsets of the Real Line Through Potential Theory and Geometric Function Theory

ABSTRACT:

The main goal of this proposal is to investigate a series of fundamental
problems in constructive function theory which constitute common ground
of the analysis and applied mathematics. Our approach borrows ideas and
techniques from many fields of theoretical mathematics, such as real and
complex analysis, topology, and Fourier analysis. Recently, Carleson,
Totik, and the PI in a series of papers have found a new approach to
connect the continuous properties of the Green function and the metric
properties of the boundary of a domain where the Green function is
defined. We believe that this approach can give a decisive impulse to
investigation of a number of long-standing open problems in constructive
functio theory. A major component of this proposal is to study a new
representation of basic notions of potential theory (logarithmic capacity, the Green function, and
equilibrium measure) in terms of a conformal mapping of the exterior of
the unit interval onto the exterior of the unit disk with finite or
infinite number of radial slits, presented in the recent work of the PI.
We analyze the geometry of Cantor-type sets and propose to find a new
proof to and significant extension of the results by Totik and Carleson on
sets possessing the Hoelder continuous Green function. The second part of
our proposal concerns Markov- and Remez-type inequalities for polynomials
on subsets of the real line. We propose to construct a general
$2$-dimensional theory of Remez-type inequalities and illustrate their
power by giving a number of applications. The last part is devoted to study of well-known
open problems in polynomial approximation in the complex plane which have
a large number of applications in both pure and applied mathematics. We
hope to find a complete solution of the Meinardus-Varga problem on
structure of an entire function with the geometric convergence on the
positive real axis of reciprocals of polynomials to the reciprocal of the
function. We intend to employ a new concept of Faber-type polynomials. Our
prior reseach indicates that there exists a connection between th
Nikolskii-Timan-Dzjadyk approximation theorem and the concept of uniformly
perfect sets introduced by Beardon and Pommerenke. We propose to
investigate the details of this connection.

The major component of the broader impact of our proposal is to create a
new link between potential theory, geometric function theory and
constructive function theory. Another component concerns the training
of graduate and undergraduate students. Indeed, the problems addressed in
this proposal are stated in such a way that not only are they clear to the
graduate students but they are accessible to undergraduates as well. On
the other hand, the answers to many of those problems are quite
counterintuitive. This stimulates the interest of students to the subject
and mathematics in general.